Granulite and Eclogite Facies Metamorphism of the Carolina Arc Terrane: Implications for Pre-Alleghanian Collision Tectonics in the Southern Appalachians

9805159
Dennis
This project is a detailed study of the distribution, origin, and P-T-t history of eclogites and associated high grade rocks in the central Piedmont of South Carolina that will illuminate the role of pre-Alleghanian collisions in the evolution of the Carolina terrane, and provide insights into the formation and exhumation of high pressure rocks in other collisional orogens. Our work on these eclogites and their enclosing gneisses will include: (1) Detailed mapping (1:24,000) to determine the distribution of eclogite facies rocks and their enclosing gneisses in selected quadrangles; (2) Calculation of paleo P-T-t paths based on chemical zonations in the primary mineral phases, retrograde mineral compositions, and on mineral inclusions in garnet; search for possible ultra-high P mineral assemblages in the inclusion suites. Calculation of paleo P-T-t paths for the enclosing gneisses, and search for relict high P assemblages in the enclosing gneisses. (3) Determination the protoliths of the eclogites and their enclosing gneisses by whole rock major and trace element geochemistry, combined with their distribution and age relationships.